2007 Polymers (East) Gordon Research Conference, June 17-22, 2007, South Hadley, MA

Intellectual Merit:
The potential role of well-defined polymeric materials in a range of advanced
technologies is becoming increasing apparent. From microelectronics, sensors, drug
delivery systems, catalysts, agents for chemical warfare detection and destruction, smart
surfaces, to biodegradable tissue replacements, polymeric materials are the critical
components or enabling technologies for the successful implementation of these
applications. This symposium will focus upon recent developments in the catalysts to
produce well-defined polymers, assembly of polymers into nanostructured materials,
electronically-functional polymers, polymers for holographic storage and fuel cell
devices, fundamental investigations of the interfaces between organic polymers and
inorganic substrates, and a significant amount of discussion on the topics of biomaterials
and polymers for biomedical applications. Improved understanding of these complex systems
and their advancement toward new technologies are expected to be the outcomes from such
discussions and exchanges of knowledge in these critical areas by world experts, as can
occur uniquely in the framework of the Gordon Research Conferences.

Broader Impacts:
The ability to gather experts within the framework of the Gordon Research Conferences
provides unique opportunities to exchange data and ideas that will accelerate the
translation of polymer materials developments across laboratories and from research
advances to technological applications. Moreover, the agenda for this conference has been
designed to assemble a significant number of speakers and discussion leaders who are new
to this conference to bring new perspectives. Young scientists, postdoctoral associates
and students will be encouraged to attend.